Internet Access for Branch Campuses and Centers, Phase II: Inland Empire, San Fernando Valley and Ventura

The University of La Verne will use this grant to connect three of it's remote campus sites to the Internet. These include: the Inland Empire Center, the San Fernando Valley Site and the Ventura Center. The campus sites will be served with a 128KB frame relay connection. The students and faculty of the University of La Verne need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.